SBIR Phase II: Optimizing production and final product stability of Asparagopsis taxiformis as a novel feed material for livestock methane reduction

The broader impact of this Small Business Research (SBIR) Phase II project is to reduce methane production in the ruminant livestock industry via the commercial production of Asparagopsis taxiformis for inclusion in cattle feed. It has been demonstrated that the inclusion of A. taxiformis can drive down unwanted emissions by more than 80%. However, production capabilities of A. taxiformis lag behind the market need. The goal of this project is to optimize outdoor cultivation practices is necessary to meet this production goal. Additionally, pelletization of the final product will broaden implementation capacity of this novel livestock feed additive from small farmers to industrial feedlots, further increasing the impact of the product by incorporating this novel feed into standard ranching practices.

This project pursues development of novel cultivation procedures of A. taxiformis in scaled production operations. Currently, production approaches focus on low-light, energy intensive, and difficult to scale indoor cultivation. This project focuses on producing biomass in automated outdoor cultivation systems, thus overcoming limitations of scaling and associated energy costs of indoor cultivation. The development of alternative outdoor cultivation systems specific to the species’ needs will improve yield in production to meet industry needs. Additionally, the industry standard of milling final feed products results in a lower mass:volume ratio for shipment, driving shipping costs up. Milled material is problematic for product viability due to moisture absorption from increased surface area:air ratio. By working with a local feed mill where the algae are produced, the approach outlined in this project can realize economic gains by a local entity, reducing the costs of shipping dramatically.